Informational Encapsulation & Computational Efficiency in Parsing

ABSTRACT The project is an experimental investigation into the use of distinct types of information during sentence comprehension. Pilot work supports the view that syntactic processing is "informationally encapsulated" in that certain types of information fail to influence or guide syntactic processing, even in contexts where such information may be useful. Such encapsulation allows for a computationally efficient parse (in linear time). Specifically there is a sharp contrast between the utilization of information such as category, subcategory, number, and case specification and information such as animacy and abstractness features. The investigators will use four experimental tasks: (i) lexical decision (Wright & Garrett 1984); (ii) Word-by-word syntactic decision (Stowe 1989); (iii) word-monitoring (Marslen- Wilson & Tyler 1980), and (iv) the probe task. Both the word-by- word syntactic decision task and the word-monitoring task involve problems which limit their usefulness in experiments attempting to shed light on the issue of encapsulation. The issue of encapsulation is related to the issue of computational efficiency because the domains in which concord relations are established varies from feature to feature. The probe task will be used to investigate the role of the c-command domain in syntactic processing. In general, the aim is to conduct experiments which pilot work indicates will support a particular view of human sentence comprehension, i.e. the process of human sentence comprehension distinguishes the use of lexically-specified and general syntactic information from the use of semantic or pragmatic information, even when syntactic information is ambiguous.